Fully Renewed Calculus at Three Large Universities

This collaborative project is being implemented at the University of Iowa, University of Wisconsin-La Crosse, and Brigham Young University. Renewed calculus materials developed through the NSF supported project at the University of Iowa will be revised, tested, and refined at these three institutions. The project involves extensive training of faculty and teaching assistants to use these materials and approaches. In addition to ideas through large open ended projects on a variety of scientific and mathematical problems.